Segmental Mobility of Biopolymers

Dr. Lakowicz plans to continue his research in equipment design and development, methods of analysis and the application of frequency-domain fluorescence spectroscopy to the study of proteins, membranes and nucleic acids. There is considerable interest in the dynamic properties of proteins, membranes and nucleic acids. This interest is the result of molecular dynamics calculations on proteins, a variety of experimental measurements of the dynamics of proteins and nucleic acids, and a need to relate the measured properties to the functional behavior of these macromolecule. The characteristic timescale of fluorescence spectroscopy is well suited for quantifying the dynamics of these systems.***